Undergraduate Research in Behavior, Ecology and Evolution

This REU site in ecology, behavior and evolution will provide undergraduates contemplating a career in the biological sciences with 1) an introduction to current research in the areas of soil ecology, plant and insect ecology and evolution, plant physiology, and behavioral ecology; 2) the opportunity to conduct original research in a supportive, interactive environment; 3) instruction in the planning, execution, and interpretation of research in the areas of ecology, evolution and behavior. Students will be recruited with special attention to encouraging participation of groups underrepresented in the biological sciences.